Interannual Variability in Warm Water Exchange between the Tropical Pacific and the Subtropics

Meinen
0136355

Monthly mean data from 1993 thru 1999 will be used to determine whether the spatio-temporal variability of fields of warm water volume and sea surface height estimated from satellite altimetry in the tropical/subtropical Pacific are correlated. The pathways of warm water variability will be determined, since it is not clear that the mean Subtropical Cells and the variations about the mean follow the same pathways.